Appalachia Rural Systemic Initiative

9452647 Royster A coalition will direct, facilitate, and organize a series of activities designed to determine needs and strategies for systemic educational reform in a geographically challenged, and economically depressed region. The activities, which include collection of baseline data, expansion and networking of local partnerships, and identification and testing of specific reform strategies, will be accomplished by organizing the activities into four Study Groups. These Study Groups will bring the concept of systemic reform to isolated school districts while gathering the necessary information, identify resources existing and those needed, and will provide recommendations to inform the development of an overall plan for implementing systemic reform of science and mathematics education throughout the rural region.